Conference: Exoplanet Atmospheres 2026

The American Astronomical Society (AAS) has organized a conference entitled
“Exoplanet Atmospheres 2026” as part of their American Astronomical Society Topical
Conference Series (AASTCS), to be held on March 16-20, 2026 in Denver, Colorado.
The conference, the 11th in the AASTCS series, will cover the broad subject of
exoplanet atmospheres, which is one of the hottest areas of astronomy and planetary
science today. The conference is intended to be a forum for exchange of ideas between
the different areas of this broad topic and will cover all kinds of planets (rocky and giant,
close-in and distant), techniques (transits, direct imaging, high-resolution), wavelengths
(X-ray to mid-IR), and processes (formation, evolution, winds, chemistry, life). There will
be invited speakers, contributed talks by conference attendees, and poster
presentations; the abstracts of all contributions will be published in the Bulletin of the
AAS, a fully open access publication of the AAS. The conference will be open to all
researchers in this field, from undergraduate students to more senior professors, and
thus it will benefit society by contributing to the development of a globally competitive
STEM workforce.

The conference will be a single session conference over 4.5 days serving a large and
growing community of astronomers whose research efforts focus on exoplanet
atmospheres. The premise of the conference is a meeting that can be a forum for
exchange of ideas between the different areas of this broad field, and it will focus on
new, cutting-edge results and synthesis of key areas by top experts. The time is right for
such a conference, as the field is rapidly growing in part due to JWST, continued
advances in ground-based instrumentation and techniques, and the growing importance
of including atmospheres in exoplanet demographics studies. The conference will
include 13 invited talks, up to 55 contributed talks, and provide all attendees the chance to present a poster, covering topics that include all types of exoplanets (rock, giant, close-in, distant), exoplanet observational techniques (transits, direct imaging, high-resolution spectroscopy) across the electromagnetic spectrum (X-ray to mid-infrared), and related processes (formation, evolution, winds, chemistry, biosignatures). The AAS has an excellent track record— through the AASTCS series—of organizing scientific meetings, and “Exoplanet Atmospheres 2026” is timely and fills the need for an open conference for this exciting and rapidly progressing field.